Japan STA Program: "Ne-Ne Collision Angular Correlation Measurements and Other Collinear Photoionization of Ions"

This award will provide supplementary support to enable Dr. Scott Kravis of Texas A&M University to conduct collaborative research with Dr. Yohko Awaya for 24 months at the Institute for Physical and Chemical Research (RIKEN) in Japan. They will apply Dr. Kravis' Time of Flight (TOF) spectrometer to measure the photoionization cross-sections of ions using a collinear ion beam and synchrotron radiation geometry. At present, the theory for inner-shell photoionization of ions is far ahead of experimentation. The collaborative experimentation between Dr. Kravis and Dr. Awaya is much needed to substantiate the photoionization theory. Dr. Awaya and his expertise of the RILAC accelerator and SPring 8 GeV synchrotron radiation facility at RIKEN will complement Dr. Kravis' expertise in measuring transfer rate coefficients at low energies and measuring ionic distribution after inner- shell ionization. Integral to their accelerator based experiments, Dr. Kravis' TOF spectrometer will detect scattered projectile in coincidence with a specific recoil ion charge state.